Film: Minorities In Science & Engineering, "What's Up"

By 1995, Blacks and Hispanics are expected to make up about 28% of college-age students in the U.S. Considering the role science and technology play in the world, the percentage of doctoral degrees awarded to minorities in the United States is alarmingly low. In order to have more minority students participating in these fields, as well as provide a vital background for those NOT choosing science careers, it is necessary to interest them in science and math at an early age. This means that young children who have a natural curiosity about everything around them must keep that curiosity and learn to see the connection of science and math with things that interest them. The 1/2 hour film will address 7 to 12 year-olds and show that science and technology are present in some form in everything around them, and they have a connection with things children know and like: sports, TV, water, space, etc.